ITR: Adaptive Protocols for a Distributed Java Virtual Machine

Java is a language of growing importance but so far parallelism in Java has been limited to either multi-threading on symmetric multiprocessors (SMP) or distributed computing using Remote Method
Invocation (RMI). The number and size of Java-based Internet-related applications require more and more parallelism and system scalability. This proposal addresses the problem of designing memory consistency
protocols for a distributed Java Virtual Machine capable of self-adapting at runtime to different application characteristics.

The proposed work is divided into five tasks: (1) the definition of the memory consistency model, (2) the development of consistency protocols, (3) the definition of an analytical performance model on which
adaptive protocols are based, (4) the development of processor allocation algorithms for load balancing, and (5) the evaluation of the system performance using four classes of applications.

A correct distributed Java Virtual Machine specification must be first defined. The correctness issue is especially important for a distributed shared memory Java Virtual Machine due to the incompatibilities between the Sun specification and distributed memory architectures. Preliminary work indicates that Sun's JVM specification is too strong for DSM architectures. A thorough analysis of the JVMS requirements will produce the set of constraints that have to be relaxed from the original Sun's JVMS to allow an efficient distributed implementation.

Once a theoretical memory consistency model is established, the next step is to develop consistency protocols. An analytical model is proposed to analyze the application behavior for various protocols. The application profile can be abstracted by the object granularity, temporal locality of accesses, and object access
patterns. A novelty of the proposed work is the mapping of application parameters into protocol parameters using the analytical model parameters: thread creation time, synchronization time, and execution
overhead. These parameters can be estimated analytically and measured. The correlation between model parameters and adaptive protocols needs to be investigated. It is necessary to develop heuristics that link
parameters with the protocols.

As part of the preliminary work, a distributed Java Virtual Machine called DISK has been implemented in our network-of-workstations laboratory consisting of sixteen Pentium III computers connected by a
100 Mbps network. DISK currently supports two memory consistency protocols: an invalidate and an update lazy release consistency protocol.

Several Java-specific applications will be investigated to measure and tune the performance of the adaptive protocols developed. Four different classes of applications from the Internet and knowledge
processing technology will be used as new benchmarks: (1) client-side I/O intensive applications, (2) server-side I/O intensive applications, (3) computational intensive applications, and
(4) computational and I/O intensive applications.